Simulation Models of Dynamic Work Processes and Organizations

The Virtual Design Team (VDT) computational organization simulation framework uses Jay Galbraith's (1973) " information-processin" (IP) view of knowledge-work to simulate project organizations performing relatively routine engineering tasks. To model the impact of exceptions in routine engineering work, VDT simply adds work volume to predefined activities in a fixed organization structure. This abstraction has proven remarkably successful for modeling product development tasks, but breaks down for less routine service tasks. To address this shortcoming, multiple kinds of stochastic exceptions must dynamically modify both the work process and performing organization. This extended IP framework will be able to model and simulate the inherent uncertainty of service work and the more dynamic organizational structures of service organizations. Validation of the extended IP model involves a rigorous, stepwise approach of testing reasoning, representation and usefulness, through a set of virtual computational experiments employing progressively more complex models. Finally, retrospective and prospective empirical validation experiments will be carried out in two domains: health care organizations and engineering maintenance organizations. This research will greatly extend the range of applicability of computational organizational models, and will enhance our ability to design more effective organizations and information technologies for service work--currently nearly 80% of all US employment.